Electron Calorimeters for the Measurement of the Muon G-2

An electron calorimeter will be constructed for use in a new generation measurement of the muon anomalous magnetic moment. The detector will be used in conjunction with a large muon storage ring being built at Brookhaven National Laboratory, where the experiment will be conducted. A twenty- fold increase in sensitivity over previous measurements is anticipated, providing improved understanding of electroweak renormalization effects and muon substructure to an equivalent mass of several teV.